NER: Nanomaterials Platforms for Control of Gene Expression

CBET-0709468 Hill The project goal is to develop and validate the use of chalcopyrite-based nanostructures to target intracellular delivery of small interfering RNAs (siRNAs). The NER team will exploit known signal sequences in designing peptides also linked to the nanostructure platform to
specifically concentrate the cargomolecules, siRNAs, within specific sub-cellular compartments.
Signal sequences will utilize known cellular transport mechanisms and pathways to target
mRNA knock-down.
The proposed project has four objectives: 1) Develop a range of novel, functionalizable,
fluorescent semiconductor chalcopyrite clusters in the 1-2 nm size range. 2) Describe and
quantify delivery of peptide-chalcopyrite nanocluster conjugates into cells. 3) Demonstrate gene
knock-down by chalcopyrite nanocluster-conjugated siRNAs. 4) Demonstrate gene knock-down
by peptide-targeted chalcopyrite nanocluster delivered siRNAs. Chalcopyrite nanoclusters will
be designed and synthesized with characteristics that will provide targeted and potent delivery
of siRNA cargo molecules.